Four Meetings to Study: Mathematization of Dimensioning andTolerancing; September 1989 through April 1990

During the conduct of the National Science Foundation sponsored American Society of Mechanical Engineers Workshop on Mechanical Tolerancing (September 28 - October 2, 1988), it became evident that there was a need to determine the shortcomings and ambiguities of inspection systems that assess deviations of part geometries according to current standards and practices of dimensioning and tolerancing. A study will be conducted to examine the difference between the results of current sample measurement systems measuring workpieces dimensioned and toleranced to current geometric dimensioning and tolerancing (GD&T) standards. The ambiguities found can be traced to the need for a mathematical foundation for current standards. The final report will consist of a draft standard to be supplied to the National Science Foundation and the American Society of Mechanical Engineers Y14 Committee for approval as the American National Standard.